Workshop on Alliances, Networks and Partnerships in the Innovation Process (Ottawa, Canada; February 28, 2002-March 1, 2002)

The purpose of the Workship is to examine the influence of alliances, networks and partnerships on the innovation process. This is done to help to help statisticians measure activities associated with these linkages, to inform policy makers, and to promote discussion in the research community. It is the fifth such Workshop initiated by Statistics Canada and the first in partnership with the National Science Foundation.